Workshop on Integrated Research for Civil Infrastructure

9629884 "Workshop on Integrated Research for Civil Infrastructure"" Dr. Rae Zimmerman and Dr. Roy Sparrow, Wagner Graduate School, New York University The integration of engineering, the sciences (social, behavioral, economic, physical, natural, and materials science), and mathematics is important to the conceptualization and implementation of infrastructure performance needs, which require an interdisciplinary focus. This workshop will bring together experts from a variety of academic disciplines as well as professional settings to address research needs and opportunities in the are of integrated assessments for infrastructure performance. A multidisciplinary perspective will be supported by the use of three co-chairpersons from engineering, the social, behavioral, and economic sciences; and the physical, natural, and materials sciences and mathematics, who will join the New York University/Polytechnic University team in planning and carrying out the workshop. It will build on the experiences of prior workshops. The workshop will be designed to promote a dialogue among the participants to address where research is needed to promote integrated infrastructure assessment, what the opportunities are, where the gaps are, and what mechanisms or approaches are appropriate to address these research issues. A report will be prepared containing workshop recommendations on these issues, and wider dissemination of the results will be considered. ***